Studies of Ship Hydrodynamics and Water Waves

A combined experimental/numerical analysis approach is underway to address hydrodynamic problems arising in the interaction between water waves and various floating and fixed bodies. The focus is on non-linear wave/body interactions and non-linear instabilities in the interaction between waves and bodies. Issues to be addressed specifically include improved methods for predicting the region near the body and the free water line, evolution of wave envelopes, and the development of efficient numerical schemes for predicting such flows.